Dynamics of Extrasolar Planetary Systems

AST 0507727
Frederic Rasio
Northwestern University
Dynamics of Extrasolar Planetary Systems
ABSTRACT
A theoretical study of the dynamics and stability of extrasolar planetary systems will be conducted.
The overall goal is a better understanding of the formation and evolution of planetary systems
around other stars, particularly those in extreme environments. Special emphasis will be placed on
multiple planet systems, systems during stellar interactions, pulsar planet systems, and interactions
between planetary dynamics and the central star. Central to this work is the combination of orbital
dynamics and hydrodynamic methods in the simulations, as well as stellar evolution where
appropriate. Planned improvements include removing approximations in gravitational scattering and
better treatments of tides and tidal heating (among others). The dynamics simulation tools
developed here will also have application to many broader areas of astrophysics.
The work here is part of a student-oriented research program in computational astrophysics which
will be continued. A postdoctoral fellow will be supported and trained in numerical modeling as
well. The resulting animations will also be incorporated into public exhibitions and activities at the
nearby Adler Planetarium.